Workshop on Wireless Internet - Data and Enterprise Applications, University of California-Los Angeles

This grant provides funding for a workshop focusing on emerging technologies related to a Wireless Mobile Internet. The workshop is a collaborative effort between the Anderson School of Management, Computer Science, and the Electrical and Mechanical Engineering Departments of UCLA. The workshop provides a forum for academics, industry, and research establishments to target major aspects and problems related to IP-based mobile Internet and wireless access to the Internet. Technologies such as, WiFi, Bluetooth, 3G and Java are discussed and the possibilities of their integration explored, with applications to mobile commerce, wireless transactions, etc. The workshop takes the form of lectures, and panel discussions by leaders in industry and academia. Lectures and discussion transcripts will be made available to the public via the WEB. The workshop is held on November 8-9, 2001 on the Campus of UCLA. The PI anticipates that this will become an annual event.